Designing efficient parallel algorithms for more realistic models of computation.

The main objective of the project is to develop a research plan in the area of parallel algorithm design aiming to gain a better understanding of how and when parallel computers can help solve problems faster than sequential ones. Efficiency of parallel algorithms for a given problem is measured by the ratio of the time needed by the best known sequential algorithms for the same problem and the product of the time and number of processors used in the computation. When the ratio is a constant, the parallel algorithm is called efficient. An emphasis of the research is to design efficient parallel algorithms for some graph problems.